Dissolved Organic Matter Biogeochemistry: Linking Ecosystem Processes, Community Structure and Microbial Dynamics in Streams

Abstract

99-04047
Kaplan

Dissolved organic matter biogeochemistry: Linking ecosystem processes, community structure and microbial dynamics in streams

The investigators in this research effort ask a simple, critical and little understood question in ecosystem studies: How do bacterial communities process dissolved organic matter in streams? To answer this question the PIs, including scientists and students from 5 institutions, will investigate: 1) what dissolved organic food resources and bacterial consumers are in a particular stream; 2) how the organic chemistry of the water and composition of the bacterial community respond to seasonal changes and other disturbances; 3) whether bacterial communities can process organic matter from different streams and habitats; and 4) how bacteria respond to changes in the quantity and quality of their food supply. This project bridges three disciplines: biogeochemistry, microbial ecology and ecological theory. It also encompasses three distinct biomes: Eastern deciduous, Southern coniferous and Tropical evergreen. Beyond contributions to our basic understanding of stream ecosystems and microbial ecology, this research has broad implications for the biological treatment of drinking waters and the remediation of organically polluted environments.